DISSERTATION RESEARCH: Untangling the Evolutionary History of the Verbena Complex (Verbenaceae): Hybridization, Introgression, and Polyploidization

Hybridization, introgression (movement of genes from one species into another
via hybridization), and polyploidization (chromosome doubling) are important
phenomena in plant speciation and evolution. A well-resolved genealogical tree,
depicting the species relationships, is fundamental to understand these phenomena, but
can be extremely challenging to construct. This research has two aims. The first is to
develop strategies for resolving such genealogical trees. The second is to use these
methods to untangle the evolutionary history of the Verbena complex, a group
characterized by the prevalence of hybridization, introgression, and polyploidization. By
the comparing sequences of four independent DNA regions from the chloroplast and
nuclear genomes, genealogical trees will be constructed to infer relationships. In
addition, hundreds of transposable elements (SINEs and MITEs), genetic elements that
can move from one location to another on chromosomes, will be identified and used to
trace the evolutionary history of the organisms that host them.

Anticipated outcomes include a well-resolved evolutionary tree of the Verbena
complex, which will be incorporated into an updated taxonomic treatment in
collaboration with botanists at the Instituto Darwinion, Argentina. Using transposable
elements to trace evolutionary histories is a novel application to plant evolutionary
studies and may have great impact on such studies. Results from this research will be
presented at annual scientific meetings and submitted to peer-reviewed journals for
publication.